Supporting R&D for the Design of a Neutrino Source Based on a Muon Storage Ring

This is a proposal for some of the critical R&D needed to bring the muon storage ring/neutrino source to the point where it can be evaluated as a potential physics project for the field. In addition, it may pave the way for a future muon storage ring to explore physics at an energy scale beyond what is foreseen for the coming decade.

This is of great interest as it can lead to advances in neutrino physics and possibly eventually to a new method to make a lepton collider. More specifically, this project can have significant impact on the enabling of well characterized, narrow band, variable energy beams of neutrinos for the determination of neutrino mass and mixing parameters and possibly for seeing CP violation in the neutrino sector. Students will be given diverse opportunities to work on unique problems.